PGE/SEP: Bioinformatics Initiative for High School Students

Abstract

This summer initiative will familiarize selected high-school
students with Bioinformatics, an increasingly important field with strong
potential for growth in the coming decades. This course is oriented toward
female high school students. This program will be offered in the summer of
2001, and will be open to qualified young women who have
just completed their third year of high school. Particular encouragement
will be given to young women who are members of minority groups; who are
from low-income families; and who lack strong role models in science and
technology.

Upon conclusion of the program, the participants will be able to:
- Describe, apply, and analyze principles of molecular biology;
- Use the Internet, Microsoft Office, and Bioinformatics tools;
- Use problem-based learning techniques;
- Distinguish the outcomes of their data entries and manipulations;
- Comprehend Bioinformatics as a field of study;
- Know the roles that women can achieve in science and information
technology; and
- Value group process as a means of learning .

In the program, participating young women will live on campus during
the five-week program period; take courses during the day; participate in
hands-on lab work; work together as members of small teams; benefit from
presentations from and discussions with working professionals in the field;
and travel to pharmaceutical and biotechnology companies, government
laboratories, and other sites to complement their coursework, and learn how
Bioinformatics is used in the scientific field. The program will use the
NSF-funded Biology Student Workbench (BSW) program as the part of the
curriculum, and the program organizers will work closely with the staff of
that project in order to implement it appropriately. Using a problem-based
learning approach, the investigators will teach via student-centered group
interaction, and will create specific scenarios for student research.

The program will be designed to encourage young women to pursue
Bioinformatics as a field of study, and ultimately as a profession. Participants
will strengthen their general computer skills and their ability to use the
Internet as an interactive tool. By working in teams they will increase
their problem solving abilities, communication skills and ability to
interact with others.

Upon conclusion of the program, information will be
disseminated to encourage the replication of the program at other sites
nationwide through presentations and publications, as well as work with
BioQuest and the Biology Student Workbench team. The program organizers
except to extend the benefits to other high school students and teachers,
and encourage many young women to enter computer technology, mathematics,
and science fields.